Mathematical Sciences Computing Research Environments

9508427 Eddy The Department of Statistics at Carnegie Mellon University will purchase an eight-node compute cluster for use as a small parallel computer. This equipment will be dedicated to support research in the mathematical sciences and will be used for several research projects, including in particular: 1. Functional Magnetic Resonance Imaging by William F. Eddy and Christopher Gen 2. Nested Analysis of Variance Directed by Evolutionary Graphs by Bernie Devlin and Kathryn Roeder 3. Dynamic Methods for Modeling Sea Height Anomalies by Ngai Hang Chan and Joseph B. Kadane